Collaborative Research: Frameworks: Designing Next-Generation HPC and AI Middleware with Power-Performance Tradeoffs

Current Exascale HPC and AI systems employ powerful accelerators and many-core processors and consume significant power. Previous work in the HPC and AI communities has focused on achieving maximum performance in power-constrained environments. However, there is an open challenge whether applications can be run with reduced energy consumption while tolerating minimal performance degradation. To achieve this goal, three things are critically needed: 1) Designing next-generation MPI libraries and communication runtimes to achieve power-performance trade-offs, 2) Reporting of energy consumption, in addition to performance, to the end-user for each application run, and 3) An easy-to-use mechanism for an end-user to specify different modes of an application run with power-performance tradeoffs. This project address this open challenge and develops an intelligent approach for new and enhanced energy-aware designs within the MVAPICH MPI library for scaling up/out the driving science applications with minimal performance degradation and demonstrating its benefits on production HPC and AI clusters.

With the growth in Exascale computing, modern HPC and AI systems are using accelerators with significant energy consumption. The broad vision of this project is to use a novel approach to reduce energy consumption of HPC and AI applications by allowing the users to tolerate minimal performance degradation. The specific challenges involved are: 1) Developing dynamic and scalable energy profiling and reporting, 2) Designing an easy-to-use performance energy tuner, 3) Designing a set of energy-efficient designs and associated intelligent selection mechanisms in the MVAPICH MPI library at runtime (transport protocols, on-the-fly compression, non-contiguous transfers, and load-imbalance aware protocol) to achieve performance-energy tradeoffs, 4) Developing a unified power management module and performance-energy tuning, 5) Integrating the solutions into the MVAPICH MPI library, and 6) Studying the benefits of the new framework for a range of HPC and AI applications on a diverse set of heterogeneous systems. A synergistic and comprehensive research, development, validation, and release plan will involve researchers from OSU, SDSC, TACC, and OSC, as well as a set of external collaborators from multiple HPC centers and institutions and community code developers (NAMD, Amber, PuReMD, WRF, NEURON, PSDSN, AWP-ODC, MILC, Image Processing, and LLMs). The framework will be made available to collaborators and the broader scientific community to understand the impact on next-generation HPC and AI applications in various domains. The project will have a significant impact on driving guidelines for designing, deploying, and utilizing next-generation HPC and AI systems for various application domains and will enable undergraduate and graduate curriculum advancements via research in pedagogy for HPC, AI, and Data Analytics courses. A robust training plan is also proposed for CI professionals, and the results will also be disseminated to the collaborating organizations of the investigators to impact their HPC and AI software environments and applications.